Support for HICSS-27 Minitrack on Genome Informatics

WPC 2 < B P Z < Courier 10cpi #| x x @ 8 ; X @ HP Laserjet (25-in-one, Network) HPLASEII.PRS x @ , t 0 NX @ # x 6 X @ 8 ; X @# 2 < n ~ V Z #| x Courier 10cpi 2 x x x , x @ 8 ; X @ HP Laserjet (25-in-one, Network) HPLASEII.PRS x @ , t 0 NX @ 2 < n F ` # x 6 X @ 8 ; X @# ( 9313594 Shin This award will partially support travel costs of some participants in the minitrack for Data and Knowledge Base Issues in Genomics, which is part of the Hawaii International Conference on System Sciences/Biotechnology Computing Track. The conference takes place in Maui, Hawaii, January 4 7, 1994. The minitrack is a one day workshop consisting of paper presentations and discussion sessions that will bring together biologists and computer scientists interested in genome data management and retrieval. Topics to be considered by this workshop include design and use of databases for genomic mapping and sequences, interchange and interoperability between genome databases, and integrating genome databases with knowledge bases. This award is made in conjunction comparable support from the National Center for Human Genome Research and from the Department of Energy. ***